A Proposal to Support Students and Young Scientists in 2007 ACM Sigmobile and the USENIX Association Mobile Systems, Applications, and Services Conference in Puerto Rico

The proposal request partial support for young researchers and students to participate in 2007 MobiSys Conference in San Juan, Puerto Rico. The NSF support will provide opportunities for 16 young participants to interact with established researchers. The focus of the conference is on the design, implementation, usage, and evaluation of mobile computing and wireless systems, applications, and services.

The broader impact of the proposal is fostering an environment of technical discussions and debates among the communities of mobile computing and wireless systems. In addition the conference is set out to encourage participation by young scientists and researchers. The intellectual merit of the 2007 MobiSys Conference will be advancing knowledge of mobile system design, implementation, and evaluation.